Theoretical Studies of Quark Models and Hadronic and Nuclear Dynamics

The dynamics of hadronic and nuclear systems will be studied, with emphasis on the connections to the underlying quark-gluon symmetry and dynamics. The specific areas to be investigated include the behavior of strangeness in extreme conditions, chiral symmetry as manifested in exchange currents in nuceli, the dynamics of nucleon-antinucleon annihilation, flavor symmetry properties of hadron structure as revealed by external current probes, and the astrophysical applications of neutrino-nucleus reactions.